Distribution of Larval Fish Prey Organisms in Northwest Atlantic Nursery Areas

The proposed three year project will contribute to the long term research programs of both Hampton University (HU) and NOAA National Marine Fisheries Service, Northeast Fisheries Center (NEC), in zooplankton taxonomy and larval fish trophodynamics and to their shared commitment to increasing the participation of minorities in marine science. Copepod developmental stages that are the preferred food of larval fish will be identified and enumerated in fine mesh (.053 mm pore size) spring zooplankton samples taken in 1980-83 in the Georges Bank and Gulf of Maine nursery areas for cod and haddock. One HU graduate student will focus on 75 Georges Bank samples during project years one and two, and a second will utilize 91 Gulf of Maine samples during years two and three. They and undergraduate student assistants will interact with scientists in the Plankton Ecology Investigation at the NEC Narragansett Laboratory. The graduate students will develop masters theses that apply statistical analyses to new data from the fine mesh samples and existing data from coarse mesh samples to test hypotheses concerning the relative spatial and temporal distributions of zooplankton and ichthyoplankton in the study area. Estimation of secondary production of copepod nauplii, employing production/biomass ratios or cohort analyses, will be attempted. The fine mesh data will be added to the MARMAP Ecosystem Data Base at NEC, and the students will be advanced in their preparation for marine science careers.